Radio Continuum Observations of Active Stars

It is now possible to detect and study radio emission from the coronae of stars by using the improved sensitivity of the VLA. The PI is exploiting this capability to survey a variety of stars which are known or expected to have coronae. These include weak-lined T Tau stars, dMe flare stars, RS CVn binaries, stars in the . Persei cluster, the rapidly rotating K dwarf AB Dor, etc. The goal is to understand the structure and underlying physical processes of the coronae.